Tourism and Sustainable Development in the Arctic: An Anthropological Analysis of Indigenous Development of Tourism in a Greenlandic Community

ABSTRACT OPP-9505391 This dissertation project will examine the effects on local society and culture of community-based indigenous tourism development in a small community in southwest Greenland. The main goal of the project will be an assessment of the economic, social and cultural viability and sustainability of this form of tourism. The project employs anthropological theory and methods and serves as an important contribution to the study of sustainable development in the Arctic as well as advancing the development of arctic-based research within the wider concerns of social science. ***